Propeller Polymers: Synthesis of Chiral Conjugated Second-Order Nonlinear Optical Materials

9529805 Pu Organic materials with second-order nonlinear optical properties are potentially very useful in optical information storage and processing, and in telecommunication. Three dimensional organic polymeric materials with similar NLO chromophore geometry are unknown. Organic polymers have better mechanical flexibility and processability than inorganic salts. We therefore propose to use optically active binaphthyls to build propeller polymers. These propeller polymers are expected to exhibit second-order NLO properties. The NLO properties of the propeller polymers can be adjusted and optimized by systematically modifying the conjugation length, the electron donors and acceptors of the repeat unit. Macroscopic organization of the propeller polymers will also be conducted by using ionic self-assembly technique. %%% This study will not only lead to potentially useful materials, but will also provide us the fundamental knowledge of these structurally fascinating new polymers. Potential implications are in the broad areas of electrical and electronic materials, thin-film devices, optical waveguides and similar active components. ***